Advances in Research Methods Education: Computer Applications in Design, Analysis, and Interfacing

The efficient preparation of undergraduate students to benefit from participation in scientific research is a growing concern at the institution. The project is enhancing undergraduate readiness for participation in research by providing more efficient, comprehensive, and modern instruction in research methods. Using a network system of nine microcomputer lab stations, students are working with instructional programs and statistical software covering the areas of research design, statistics, and computer interfacing. By providing direct statistical analysis, both fundamental and advanced concepts in research methods can be taught more efficiently and thoroughly than is possible in more traditional research programs. In addition, the project is covering the uses of computers in research settings, providing students with both conceptual and practical knowledge relevant to contemporary research methodology. The program should provide a model for other institutions committed to undergraduate research.